STEP.com

The Newport News Public Schools (NNPS) proposes to plan and implement a project titled: STEP.Com. This project is designed to significantly advance science, mathematics, and technology (SMT) education of all K-12 students. The NNPS would accomplish this task by building on the extant infrastructure developed by a systemic reform process initiated in 1992 and catalyzed by the CPMSA program, implemented 1993.

System components identified for more extensive deployment are as follows:

(1) Intensify the institutionalization of the K-12 science, mathematics, and technology (SMT) standards-based curriculum.
(2) Elevate principals' leadership capacity to promote and sustain reform.
(3) Expand school-business partnership programs that would increase the number of skilled-entrants into the technology-based workforce.
(4) Accelerate the integration of parents and community as partners in the whole school reform process.

Critically new system components include in this project design:
(1) Collaboration with universities to revise teacher education program.
(2) Expansion of student-teacher research activities supported by post-doctoral personnel from the universities.
(3) Infusion of technology to improve teachers' delivery of SMT standards-based curriculum for all students.
(4) Application of key indicator data systems that correlate teacher performance and student achievement.

This NNUSP project will lead to a unified, full-scale implementation of a SMT program for all students. It has the potential to dramatically impact the future of the Newport News Community.